Connection to Virginia Educational and Research Network

Eastern Virginia Medical School is establishing a connection to NSFNET via a 56,000 bits per second line through the Virginia Educational and Research Network and the SURANET mid-level network. The connection enhances collaborations of campus researchers with colleagues in several medical fields, as well as on-line access to remote bibliography databases. This award funds part of the costs for twelve months.